CAREER: Diffractive Imaging of Molecular Structure and Dynamics with Vortex Beams: Theory and Computation

Dr. Haiwang Yong of the University of California San Diego is supported to develop the theoretical foundation for a new type of diffraction technique using vortex beams and to explore its applications in imaging molecular structure and ultrafast quantum dynamics. Understanding how electrons and atomic nuclei move in molecules in real time is essential for advancing technologies in quantum information science, energy storage and advanced materials design. However, current diffraction methods have limitations in capturing these processes in complex molecular systems. Dr. Yong and his research group will develop new theoretical and computational tools to overcome these limitations, enabling more powerful techniques for imaging molecular structure and motion with unprecedented detail. The work will also help guide the development of next-generation X-ray and electron sources at U.S. national laboratories. In parallel, this project will support STEM workforce development through an ultrafast chemistry workshop series that will engage students with emerging scientific advances in ultrafast science while strengthening their skills in scientific communication, critical thinking, and collaborative research.

Dr. Yong and his research group will develop the theoretical framework for time-resolved diffraction techniques that use vortex X-ray or electron beams, whose helical wavefronts interact with molecules in fundamentally different ways from conventional plane waves. This project has two primary objectives. First, they will establish a unified theoretical framework for vortex beam diffraction, including the formulation of experimental observables within the minimal-coupling Hamiltonian framework and the development of accurate computational methods to simulate diffraction signals from molecular wavefunctions generated through quantum chemistry calculations. Second, they will use this framework to investigate how vortex beam diffraction can be used to image molecular structure and ultrafast chemical dynamics through electronic coherences in molecules. The results will provide a theoretical foundation for future experimental implementation of vortex beam diffraction and advance our understanding of quantum dynamics in molecules and materials, which play important roles in quantum computing and quantum sensing.